Doctoral Research in Multifunctional Optical Nanomaterials (HBCU-RISE)

This HBCU-RISE project at Hampton University involves doctoral research on multifunctional optical nanomaterials to strengthen research and education in the Physics Ph.D. program. The primary objectives are to: 1) develop a world-class research and education program in optical nano-physics; 2) increase the number of doctoral degrees with emphasis in nano-physics for preparing; and 3) build up the pipeline of students in grades 7-16 exposed to research in nanoscience and technology. The proposed research activities will focus on optical nanophysics of multifunctional nanomaterials in the areas of: Multifunctional Nanoscale Metals for Optical Applications: The development, optical spectroscopyl , and multi-functionalization of optical noble nanometals are proposed for the application of laser weapon defense, bio-chemical sensing, and photo-thermal tumor ablation and temperature sensing. The results of the proposed research and educational activities will be disseminated through publications, conference presentations, workshops for grades 7-16 science teachers, outreach activities, and web publications, and will be assessed annually by an internal and external advisory board.